Conference on Returns to Investment in Research

9409511 Smith The Brookings Institution and the American Enterprises Institute will jointly conduct a one day conference entitled "Returns to Investment in Research " which will re-visit and examine the quantitative and qualitative social and economic benefits to society from investment in research. This conference will serve to assess the state of knowledge in this area as well as to achieve an in-depth interactive discussion between academic experts and policy leaders of the contributions of science to society. Six papers will be commissioned and published as a result of the conference. These papers will address key elements of the conference discussion--the impact of research and development on economic growth/productivity, with emphasis on the role of academic research and the results of the quantitative analysis undertaken over the past 20 years.